Research Experiences for Undergraduates: Geological Investigation for Undergraduates

This project involves a group of students working in peleontology, sedimentary petrology, and geochemistry. The research project on environmental geochemistry is especially topical, interesting and diverse enough to offer a range of research choices to the students who work with him. It will deal with the environmental geochemistry of surface waters of a river in Georgia and Alabama. Other students may be involved with an additional project examining and interpreting fossils to determine paleocurrent directions, faunal dispersion, and evolutionary development.